Dogs: Our Canine Companions

0072921
ABRAHAM

The Natural History of Museum of Los Angeles County will mount and administer a five (5) year tour of an exhibition, "Dogs: Our Canine Companions," which explores the evolution, behavior, diversity and cultural significance of dogs. Visitors to the 6,000 sq. ft. exhibit will gain a better knowledge of these familiar animals through a variety of componenets including hands-on displays, videos, graphic panels, computer-generated images, dioramas, fossil skeletons and educational curriculum materials.

The exhibit will be divided into eight (8) sections. Throughout the sections there are recurring themes to unify the educational messages of the adaptive diversity of canids, the relationship between wild and domestic dogs, and the relationship between dogs and humans -- especially service dogs.

The dissemination of DOGS will include presentations to groups and conferences, with particular emphasis on the exhibit's treatment of accessibility issues. There will be an extensive web site with animation, movies, sound and interactive elements to further enhance the effectiveness of the exhibit and the availability of educational materials.

the final ancillary materials to accompany the traveling exhibition will be a theater production, a free-standing, self-contained learning center, an exhibit guide, and a CD-Rom. Formal education providers will benefit from workshops, curriculum guides, and teaching kits.